Advanced Computational Stochastic Dynamic Programming for Continuous Time Problems

Hanson
0207081
The principal investigator and his colleagues develop
computational stochastic dynamic programming methods to find
approximations to optimally control the expected objective value
for a wide variety of applications. These applications include
the optimal treatment of cancer by chemotherapy drugs, the
optimal financial investment portfolio and parameter estimation,
optimal control of stochastic manufacturing systems, and the
optimal remediation of ground water pollution. The wide scope of
testbed applications helps to increase the robustness of their
advanced numerical methods by having to treat a variety of models
and boundary conditions. Another characteristic of many of these
applications is that the most severe changes happen as jumps of
the system and many models utilize stochastic jump-diffusion
processes. The computation of optimal approximations in jump
environments is a unique feature of the models, where increased
realism of the models more than compensates for the added burden
of increased computational complexity over diffusions. The
investigator is writing an applied book with a colleague on
stochastic processes and control emphasizing jump-diffusion
models to give broader impact to their more general results. The
mathematical level is intermediate so that it is accessible and
useful to those who actually work with real applications in
science, engineering, and finance.
The principal investigator and colleagues study models of
systems in uncertain environments and seek optimal computational
approximations to get the best performance from these systems.
Many of the applications are national challenges. One
application is the optimal management of cancer chemotherapy when
cancer cells develop resistance to a cancer drug combination.
The impact of finding optimal cancer treatment schedules would be
significant because cancer is a leading cause of death. Another
application is computational solutions for optimal investor
portfolio and consumption problems in a market with crashes in
value; the benefit is a better understanding of our nation's and
the world's financial systems. A third application is the
optimal scheduling of manufacturing systems subject to uncertain
failures, repairs, and other disruptions. Here improved
efficiencies are important for the national economic well-being.
A fourth application is the optimal remediation of pollution in
ground water, with important environmental consequences. Students
are involved in these projects, providing them with significant
experience in interdisciplinary research. Finally, the
investigators are writing an intermediate level applied book on
the optimal control of systems in uncertain environments with
large changes, integrating their results over a wide variety of
applications. The aim is to bring these ideas in a more
accessible form to scientists and engineers.